Caldera Deformation and Plate Boundary Kinematics from GPS Observations in the North Island, New Zealand

A GPS survey network will investigate the relationship between caldera deformation and deformation of the Taupo Volcanic Zone (TVZ) of North Island, New Zealand. GPS stations in these high strain rate areas will be resurveyed in the second year of this experiment. The high accuracy epoch GPS measurements which are made during the surveys will also be the basis for future deformation monitoring. It is anticipated that future measurements will be made by Victoria University and the NZGS as GPS programs are developed there.